SGER: Chemical-Agent Identifier Based on THz Absorption Spectroscopy

ABSTRACT

Professor Yujie J. Ding of Lehigh University is developing new methods for molecular spectroscopy in the THz frequency region. The idea is to make a rugged, portable and reliable compact chemical identifier for the presence and/or concentration of toxic gases (e.g. Chemical Warfare Agents). The goal of this project is to perform proof-of-concept experiments with improved types of THz detectors, improved experimental methodologies, and improved THz sources. One graduate student will be involved in this THz spectroscopy project.

This award is supported jointly by the NSF and the Intelligence Community. The Approaches to Combat Terrorism Program in the Directorate for Mathematics and Physical Sciences supports new concepts in basic research and workforce development with the potential to contribute to national security.